Travel Support for the 7th Mediterranean Conference on Control and Applications

A travel grant is requested to partically support the travel expenses for 40-50 United States control engineers who will participate in the 7th Mediterranean Conference on Control and Automation, June 28-30, l999 to be held in Haifa, Israel. All allocation will be made in support of travel and/or registrations expenses.